Plant-soil Feedback: A Mechanism to Explain the Spread of Invasive Species

ABSTRACT: Positive feedback has been proposed as a mechanism that results in the
stable persistence of alternative states of an ecosystem. Such feedback
may operate through plant-induced alterations in soil microbial
communities, which in turn alter plant communities through changes in
nutrient dynamics. The recent replacement of native understory plant
communities in eastern deciduous forests by apparently stable communities
of exotic species provides an excellent model system in which to test the
presence of soil-mediated positive feedbacks. Previous studies of this
system have shown that the recent shift in community composition is related
to changes in both nutrient cycling processes and microbial community
composition. I propose greenhouse microcosm and field plot experiments to
test whether plants drive changes in soil-based ecosystem processes by
altering the soil microbiota, and whether these changes in turn promote the
dominance of the exotics. The proposed studies will explicitly contrast a
litter-driven above-ground mechanism with a root-driven below-ground
mechanism.
BROADER IMPACTS: If the hypothesis of plant-soil positive feedback created by
altered nutrient cycling is supported, it would both demonstrate a
plausible mechanism for the persistence of alternative stable communities
and help explain the establishment of dominance by some exotic plant
species. In addition, this project will train at least 1 graduate student and 3 undergraduates.